Architectural Support for Virus Detection and Recovery

Kaeli

Combining Hardware and Software Monitoring for Improved Power and Performance Tuning

Abstract

This research will develop state-of-the-art virus detection and recovery mechanisms that will be directly integrated into the microarchitecture of microprocessors. The project will initially focus on addressing stack-smashing attacks, the most common form of malicious code intrusion. The project will explore how to utilize multiple threads to perform lightweight virus detection and recovery. This project will also look to develop new architectural features that support the efficient execution of anti-virus software.